MRI: Creation of the AVIDD Data Facility: A Distributed Facility for Managing, Analyzing and Visualizing Instrument-Driven Data

EIA-0116050
Michael A. McRobbie
Indiana University - Bloomington

MRI: Creation of the AVIDD Data Facility: a Distributed Facility for Managing, Analyzing, and Visualizing Instrument-Driven Data

This is a proposal for equipment acquisition under the Major Research Instrumentation (MRI) program to support research and student training across a broad range of instrument-driven data-intensive science areas. The proposed distributed facility for managing, analyzing, and visualizing instrument-driven data would address the data life cycle consisting of data capture and remote data reduction; high speed data transfer; real time data analysis and processing; data storage; data retreival; data analysis and postprocessing; data visualization; and the use of remote data stores. Among the research projects enhanced and enabled by the proposed facility are both computer science and applications area projects, for example work on end-to-end real time data management for remote control and use of beam-line systems by X-ray crystallographers